Isotopic Composition of Atmospheric Carbon Monoxide

9305795 Quay Determining the effect of man's activities on the concentration of atmospheric hydroxyl radical is critical to obtain accurate predictions of global change. Hydroxyl radical levels determine, to a large extent, the capacity of the atmosphere to oxidize reduced gases. Many of these reduced gases, like chlorofluorocarbons and methane, are greenhouse gases that are increasing in concentration. Accurate estimates of present concentrations are an important test for photochemical models used to predict the future levels of greenhouse gases and climate change. This project is designed to determine the seasonal and meridional variability of atmospheric hydroxyl radical concentrations through a combination of carbon-14 labeled carbon dioxide concentration measurements and modeling. This work will measure the seasonal trends in atmospheric carbon-14 labeled carbon dioxide concentrations, with samples collected on a biweekly basis, at a marine air site on the coast of Washington State (48 N) and at a remote site. A 2-D radiative-chemical-transport model will be used to derive zonally averaged hydroxyl radical fields that best describe the measured seasonal and meridional variability in carbon-14 labeled carbon dioxide.